Coordination Theory and Collaboration Technology Workshop

A workshop on the general topic of Coordination Theory and Collaboration Technology whose purpose is to examine current trends and new directions in this broad area. The workshop will be held in Ann Arbor, Michigan from November 18-20, 1994. The 30 scientists invited to the workshop will be drawn from the former CTCT NSF grantee community and from those outside the NSF family of CTCT grantees who are leading thinkers and researchers who could help explore and define new directions in this area.